Dynamic Catching and Throwing by a Humanoid Exploiting Multimodal Sensing, Impact, and Whole-Body Locomotion

Every day, people catch and/or throw objects with moderate or heavy weights. Construction workers toss tools up to the next floor. Airport baggage handlers fling suitcases in tight cargo holds. Football players catch passes faster than fifty miles per hour. Efforts of this type can sometimes be dangerous. Baggage handlers at airports, for example, hurt their muscles and joints far more often than most other workers. Today's humanoid robots cannot come close in this respect as they can only handle light or slow objects with hundreds of times weaker than what people manage every day. This project builds the science that enables humanoid robots to conduct catching and throwing almost as well as human athletes, using only the sensors on their own bodies. By reducing how often people face heavy or extreme impacts, the work could lower work-related injuries in logistics, construction, and manufacturing. The math behind catching and throwing could also help sports training, physical therapy, and the study of how the human body moves. The project trains graduate students in robotics and share open software and datasets with other researchers. It also brings hands-on robot demonstrations tied to youth sports into K-12 classrooms and science outreach programs across Iowa.

The research treats impact not as a disturbance to be rejected but as a physical resource to be sensed, regulated, and exploited. The work is organized into three thrusts. The first thrust develops joint state estimation of the flying object and the humanoid robot from onboard cameras and inertial sensors. The error between predicted and observed image features serves as a coupling signal that corrects both estimates iteratively. Camera motions are also planned to reduce estimation uncertainty while keeping the object in view. The second thrust extends multi-body impact theory to articulated robots. Each joint is modeled as a controllable contact point with tunable stiffness and coefficient of restitution. The robot then reshapes how the impulse travels through its body during the extended impact window of fifty to two hundred milliseconds. Reactive stepping is formulated as planned momentum absorption. A catch-throw duality treats momentum absorption in catching and momentum generation in throwing as symmetric processes. The third thrust integrates estimation, impact-aware planning, and whole-body control in a hierarchical architecture. Residual learning refines this architecture by adding data-driven corrections to physics-based models. Evaluation proceeds on multiple humanoid platforms and fixed-base manipulators with motion-capture ground truth. Tests progress from tracking accuracy to completion of catch-throw sequences with objects of one to five kilograms moving at five to fifteen meters per second. Expected outcomes include new estimation and impact models, open-source software and simulation environments, annotated datasets, and benchmark tasks grounded in sports and industrial material handling.